Acquisition of a FT-IR Instrument, and its Integration into Reed College's Chemistry Curriculum

A Fourier Transform Infrared Spectrometer is being used in a number of courses by the Chemistry Department at Reed College to afford students a wider opportunity to utilize modern, state-of-the-art instrumentation in their undergraduate studies. Applications in both introductory and advanced organic, inorganic, physical, and instrumental chemistry together with a significant focus on undergraduate research are involved.